NER: Exploring the Computational Limits Imposed by Nanotechnologies

NER Proposal0210225
Exploring the Computational Limits Imposed by Nanotechnologies
John E. Savage

This project has four goals: a) to develop realistic models for chips with
nanometer-size dimensions, b) to explore the computational limits that apply
under the physical constraints imposed by nanotechnologies, c) to develop
architectures and algorithms reflecting these constraints, and d) to
incorporate the knowledge acquired in advanced and early graduate instruction.

While computational nanotechnologies exist only in the most primitive forms
today, we have an opportunity to influence their use akin to that which arose
when the VLSI model was developed in the late 1970s. In this model gates are
so small that the area of wires is significant. Efficient use of this
technology required new algorithms whose efficacy was demonstrated through the
development of new complexity-theoretic lower bounds involving chip area and
computation time.

Our approach will be a) to model technologies such as orthogonal arrays
(crossbars) of nanowires and nanotubes and masses of nearly uniform
self-assembled elements, b) to extend existing VLSI theory by incorporating
the new constraints that emerge, c) to explore new architectures that cope
with the complexity-theoretic constraints exhibited by the proposed highly
regular architectures and ways of programming them, and d) to devise lectures
and/or courses to bring nanocomputation to the attention of students.